Generalized Logic Programming: Semantics and Computability

This proposal concerns extending forms of the negation as failure feature of pure Prolog to broader contexts, particularly, but not exclusively, what is often called generalized logic programming, or, simply, logic programming. The proposed project has two goals: The first goal is to extend common and wellfounded, semantics. The goal for logic programming is to find a semantics which also handles other common patterns of inference. The first goal for extensions is to find analogous negation-as-failure semantics. The second goal is (for finite databases) to compute the data complexity and (for infinite models) to determine the degree of non- recursiveness of the semantics, and to find (1) good polynomial-time or recursive approximations to the semantics and (2) general circumstance when the semantics are polynomial- time or recursive.